Mathematical Sciences: "Research in Dynamical Systems"

9504760 Franks The proposed research pertains to various aspects of dynamical systems: the dynamics of surfaces maps, stability theory for various flows, applications to celestial mechanics and Hamiltonian systems are among the topics to be pursued. Dynamics of surfaces flows - stability issues as well as area conservation issues - is directly relevant to understanding many natural phenomena and predicting their long time behavior. For example, the proposed research may lead to a better understanding of large scale fluid flow problems arising in ocean dynamics involving shallow water waves.